Integrated Studies of Floral Development, Traditional and Molecular Systematics, and Floristics in the Violet Family (Violaceae)

0211054
Ballard and Tucker
Generic distinctions and major subdivisions within many angiosperm families
commonly hinge on characteristics of floral symmetry or architecture, and
morphology of the reproductive structures themselves. This is true in the
violet family (Violaceae), a moderate-sized family of angiosperms with a
broad range of growth forms from large tropical forest canopy trees to
fingernail-sized Andean puna rosettes. Predominately insect-pollinated,
the family nevertheless boasts a wide range of floral and fruit
morphologies on par with that in whole orders of other angiosperms. An
apparently simple trend from actinomorphy to extreme zygomorphy, coupled
with increasing elaboration of staminal nectaries in floral spurs, has
figured heavily in generic concepts as well as in assignments to tribes and
subtribes. Recent studies of generic relationships based on sequences of
the trnL-F and rbcL chloroplast regions, however, reject the simplistic
trend in floral symmetry and nectary development, as well as the current
traditional classification based on this trend, revealing instead several
independent origins of bilaterally symmetrical floral types with spurs from
different radially symmetrical spurless lineages. Furthermore, pantropical
Hybanthus, the third largest genus in the family, splinters into 7 separate
groups distributed across the family, suggesting that its distinctive
"landing platform" flower is a recurrent evolutionary syndrome. The second
largest pantropical genus, Rinorea, is also substantially heterogeneous and
non-monophyletic. The proposed research program will integrate
comprehensive floral developmental investigations to clarify floral
evolution; systematic studies of macro- and micromorphological characters,
chromosome numbers, xylem anatomy and pollen morphology to reevaluate
circumscriptions and distinctions of genera and diagnosable segregates; and
inferences of generic relationships from chloroplast trnL-F spacer and rbcL
gene regions to provide a robust molecular phylogenetic foundation on which
to test relationships and develop a predictive classification. Complete
generic circumscriptions using the new and pre-existing traits, and a new
intrafamilial classification, will then be developed using examinations of
key herbarium collections at the Missouri Botanical Garden in St. Louis,
Missouri; Royal Botanic Garden at Kew, England; and the National Museum of
Natural History in Paris, France.
Field work in Latin America by the investigator and his students and herbarium and laboratory training for graduate students add to the broader impacts of the work, as does collaboration with a leading plant morphologist, Dr. Shirley Tucker at UC-Santa Barbara.